Dissemination of Project CALC Methods and Materials

Third semester calculus materials are being completed for teaching calculus as a laboratory course. The work includes the expansion of the repertoire of classroom and laboratory projects, development of versions of alternate software and hardware environments, and completion of a high school version of the course. The methods and materials for all three semesters are being evaluated and widely disseminated by workshops for college-level and pre-college faculty, by continued publication of a newsletter, and production of preliminary materials.